Travel: NSF Student Travel for 2023 USENIX Conferences FAST 2023 and NSDI 2023

The USENIX Association presents conferences at the forefront of computing innovation and research that build collaborations between researchers and practitioners from industry, government, and academia. These events provide educational, mentorship, and networking opportunities of very high value to graduate students in the computer sciences who attend. To help increase the representation and participation of these students, this proposal provides funding to assist approximately 20-25 US-based graduate students to attend each of the following events:

21sh USENIX Conference on File and Storage Technologies (FAST 2023)
20th USENIX Symposium on Networked Systems Design and Implementation (NSDI 2023)

The knowledge shared and advanced at these conferences has practical and meaningful application to many tools used in daily life, as well as to the ethical, cultural, and social ramifications of computing technology. This grant allows the participation of students who would otherwise be unable to attend the conference and extends the impact of research presented to a broad audience of young researchers from across the country. USENIX is an open access organization, and all research and results presented and published at these events are freely available to the public.